Software and Project Development for the Two Year Calculus Sequence

Calculus students at many institutions are benefiting from integrated supplements: labs exercises, projects, problems, and software packages. The lab exercises are modelled after a typical chemistry or physics lab, projects involve the student discovering and conjecturing results, and problems are challenging and realistic. The software packages provide materials and facilities and run on MS-DOS or Apple Macintosh machines.